Collective Mode Studies in Three Helium

Studies of the collective-mode spectrum of normal and superfluid 3He will be continued. Extension will be made to the non-linear region, first searching for the analog of stimulated Raman scattering. In addition, collective modes will be examined in polarized and solid 3He.